Doctoral Dissertation Research in Geography & Regional Science

This doctoral dissertation project will support research on interactive, microcomputer-based processes for locational decisionmaking. The purpose of the project is to construct an interactive preference elicitation module for selecting a location, integrate the module into a decision support system, and field-test the module in the context of an ongoing study of settlement re-organization alternatives in pastoral Australia. Efficient settlement distribution is an essential prerequisite to the effective provision of services in remote areas. This project will increase our understanding of settlement distribution by showing how the interactive elicitation and analysis of preferences can be integrated to generate good alternatives and how locational analysts can design and use a geographic Decision Support System to provide better analytical support for combinatorial location selection problems. It will also contribute to our understanding of how locational decisions are made by revealing how inconsistencies in decisionmakers' preferences are resolved. Finally, it will add to our knowledge of the process of settlement reorganization in sparsely populated areas of developed economies undergoing marked demographic and economic change.